NCSA 1987 Summer Institute at the Interdisiciplinary Research Center

In response to a Project Solicitation, the National Center for Supercomputing Applications, representing the University of Illinois at Urbana-Champaign, submitted a proposal to conduct a Supercomputer Summer Institute in 1987. This proposal and eight others were evaluated by a review panel. NCSA has proposed a two week Institute for 30 young researchers. Students will be reimbursed for the costs of travel and living expenses during their stay. NCSA has developed a series of training modules on the Center's Cray XMP/48 supercomputer and associated equipment. This will provide the students with a grounding in the basics of vector supercomputer usage. In addition, seminars will be conducted in advanced computing as applied to the atmospheric sciences, chemistry, physics, graphics, and computer science. Each student will be given five service units on the Cray. All reviewers found this to be a solid, strong proposal with a balance between hands-on work and lectures. The NCSA facilities will be available 24 hours per day, seven days per week, with a workstation/personal computer dedicated to each student. Students will retain the service units which are not used during the Institute to be used later. The costs have been controlled by using lecturers from the NCSA professional staff and researchers at the University of Illinois and other local institutions. NCSA has proposed a cost of $90,489. By cutting travel costs, speaker honoraria and associated overhead costs, the overall costs have been reduced to $68,000. NCSA has also identified an undergraduate research component of $7000. The Centers Program recommends support of a Supercomputer Summer Institute at the National Center for Supercomputing Applications in the amount of $75,000.